Collaborative Research: The Southeast Indian Ridge Between 90' E and 120' E: From a Hot Spot to a Cold Spot

9419323 Sempere This is an integrated bathymetric, geophysical, and petrological/geochemical study of the Southeast Indian Ridge. The project will focus on evaluating the effects of mantle temperature variations on mid-ocean ridge processes, at constant spreading rate and on furthering understanding of the nature and origin of the complex Indian Ocean mantle. ***